Inversion and Analysis of Earthquake Travel Time Data with A Priori Constraints in the Imperial Valley, California

9725536 Magistrale This research involves the construction, in a forward sense, of a 3- D seismic velocity model of the Imperial Valley, California, based on existing geologic and seismic surveys. Previous inversions for the velocity structure of the Imperial Valley, although done with extensive data sets, were difficult due to the large seismic velocity variations over short length scales, for example between crystalline rocks surrounding the basin and shallow sediments within the basin, the poor resolution of inversion at shallow depths, and the lack of accounting of model errors during the inversion. With the geologic information integrated in a forward model, it will be possible to estimate the model uncertainties, and properly account for those uncertainties during inversion. An improved model of faulting and crustal structure should result. This research is a component of the National Earthquake Hazard Reduction Program. ***